Photoaffinity Labeling and Active Site Chemistry of 2-5A Synthetase and RNase L

The long term goal of this project is to understand the nucleotide-protein interactions that are essential for activity of 2 enzymes: the dsRNA-dependent 2-5A synthetase and the 2-5A- dependent RNase L. These enzymes play an intriguing role in the antiviral and antiproliferative defense mechanisms of mammalian cells. Phosphorothioate-substituted ATP and 2-5A molecules have provided beochemical probes of these two key enzymes and have permitted the separation of the binding and activation processes required for enzyme catalysis. Photoaffinity labeling technology is being used to examine the nucleotide-protein interactions occurring during binding and activation of 2-5A synthetase and RNase L. This project investigates 2 enzymes which regulate levels of oligonucleotides in cells and play a role in the cell's defense mechanisms. In addition to the role of the 2-5A synthetase/RNase L system in defense against virus infection, it has been suggested that the system may also be involved in the control of cell growth, proliferation and differentiation. Fundamental questions remain and are being addressed.